Homotopical Localizations and Complications of Spaces

Proposal: DMS-0071454
PI: Wojciech Chacholski

This project is concerned with the study of the localization process and
its dual, the colocalization process, in homotopy theory. One of the
goals is to develop tools to analyze the colocalization functors analogous
to those developed by Bousfield and Kan to study completion and
localization. Another aspect of the project is to find geometric applications
and interpretations of results on localization. This is related to
certain geometric relations between spaces. The key idea is to use a fixed
space as a basic building block and use operations like push-outs and
wedges to construct more complicated spaces (in a similar way as spheres
are used to build CW-complexes). For this purpose the P.I. has been
working on understanding an invariant called complication. It roughly
gives the minimal number of steps needed to build a new space out of a
given one. There is a close relation between this invariant and the so
called Bousfield lattice, the lattice of the localization functors on
spaces. Understanding this relation has been one of the purposes of the
P.I.'s work.

Homotopy theory can be perceived as a study of the localization process.
The idea is to ignore information which is of less interest to us.
In this way homotopy theory works as a simplifying tool. For example,
in order to simplify spaces, we can think about the unit interval as the
point. In this way we ignore all the consequences caused by the difference
between these two spaces. By doing so we identify for example the
letter A and the letter O. This gives the standard homotopy theory.
The P.I.'s research has been about understanding what happens if we treat
other spaces as points.